FRG: Collaborative Research: Heat Equations and Geometric Flows in Riemannian and Kaehler Geometry

Proposal DMS-0354540/0354620
Title: FRG-Collaborative Research: Heat equations and geometric
flows in Riemannian and Kaehler geometry
PIs: Bennett Chow, Lei Ni (U.C.S.D.)/ Gang Tian (M.I.T.)

ABSTRACT

We propose to further developments related to Perelman's work on the
Geometrization Conjecture, using Ricci flow through the space-time
formulation, new gradient estimates and monotone quantities and their
geometric applications, and to apply new techniques and applications
based on the ideas of these methods and estimates with the aim of
furthering the understanding of the following interconnected topics:
1. Uniformization of compact and noncompact Kaehler manifolds,
combining Kaehler-Ricci flow and the study of holomorphic
functions/sections.
2. Analysis of singularities, formulation of weak solutions, and flow past
singularities for geometric evolution equations and the duality between
the Ricci flow and the mean curvature flow.
3. Study of harmonic/holomorphic functions, function theory, spectrum
and the geometry of complete Riemannian/Kaehler manifolds.
4. Existence of Einstein and other canonical Riemannian metrics on
manifolds.

Geometric evolution equations are powerful and central tools in the study
of the global geometry and topology of manifolds. Recent work of Perelman
on Hamilton's program for Ricci flow and its applications towards a
possible
solution to the Poincare and geometrization conjectures provides a timely
and promising opportunity for a group effort on significant advancements
in geometric analysis and related areas. The results from the project
should
lead to new advances in and connections between string/duality theory and
renormalization group flow, Ricci flow, mean curvature flow and other
geometric evolution equations, and may enhance the understanding of the
homogeneity of the universe at large scales, as well as other areas in
science.
The project will enhance the understanding of geometric analysis,
linear and
nonlinear partial differential equations, algebraic geometry and
mathematical
physics.